Virtual Organizations and the New Identity Cyberinrastructure: A Workshop for VO Architects in Middleware Planning (VAMP)

This workshop activity supports US participation and leadership in an international collaborative event around global federation development in support of collaboration in the research community. The workshop centers on Virtual Organizations (VO’s) in research and education, their needs in identity management (IdM), sharing of best practices and current deployments of federated identity systems, how to leverage global networking infrastructure in support of these federated systems, how to leverage recent cybersecurity advances, and issues in integrating some of these concepts and approaches in federated identity with distributed scientific applications and collaboration software. The event is to be held in the Netherlands in September, 2012.